Diagnosis of Three-Dimensional Ageostrophic Circulations in Upper-Level Jet-Front Systems

Fronts or near-discontinuities in wind and temperature frequently exist near the jet streams in the upper troposphre. It is well know that the vertical circulation around these fronts play a role in the development of midlatitude cyclones and precipitation systems; however, the dynamic link is not fully understood. Because the horizontal and vertical scales of an upper-level front, 100 km and 1 km respectively, are smaller than the average spacing of the radiosonde stations, it has always been difficult to extract much information on the frontal circulation from the radiosonde network. Also because the forces near a front are not in geostrophic balance, simple models cannot address nonlinear complexity, and primitive equation model simulations make the understanding of dynamics difficult. Under this grant Professor Keyser will apply a hierarchy of approximated diagnostic models to the study of frontal circulations, the levels of approximation being quasi-geostrophic, geostrophic momentum, and balance; simulations from primitive equation models will be treated as the limiting form of the approximated models. The results from this work should reveal the characteristics of the upper-level frontal dynamics as well as its link to the development of cyclones in lower troposphere.